Dissertation Research: Functional and Phyletic Features of Mammalian Dental Enamel: Evidence for Primate Higher-Level Relationships

Knowledge of the origin of the Primate Order is an important consideration in Biological Anthropology. In a cladistic analysis this is best equated with knowing the "sister group" of the Order Primates. The sister taxon of primates remains unidentified despite numerous analyses based on gross anatomy and biochemistry. Most studies have pointed to scandentians (tree shrews), dermopterans (flying lemurs), or chiropterans (bats) as likely candidates. Recent investigations of structural variation in tooth enamel have provided insights into the phylogeny of several mammalian groups. In this manner, this study will analyze the tooth enamel of primates, tree shrews, flying lemurs, and bats in order to develop a novel data base to be used in a phylogenetic assessment of primate higher-level relationships. Developmental and functional components of enamel structure will be identified. Analysis of the elements relevant to higher-level phylogeny will provide a perspective on primate ordinal level relationships that is independent of previous interpretations based on osteological, gross anatomical and molecular data bases. This will help in the better understanding of the origin of the Primate Order.